REU Supplement: Small Grants for Exploratory Research: EHDHeat Transfer Augmentation of Environmentally Safe Refrigerants

Results of research in the past decade clearly suggest an excellent potential for electrohydrodynamic (EHD) technique in heat transfer augmentation of organic media with low-electrical conductivity. Many of the newly identified refrigerants have poor heat transfer characteristics, but appear to have a low enough electrical conductivity to qualify for the EHD enhancement. An exploratory experimental research effort is proposed to investigate the effectiveness/applicability of EHD heat transfer augmentation of three environmentally acceptable (Ozone-safe) refrigerants. The selected refrigerants are R-22, R-123 and R-134a, which are believed to most likely represent the core of future non-azeotropic working fluids for residential/commercial air conditioning and heat pumping systems. The potential of EHD boiling heat transfer augmentation of these refrigerants will be studied as a function of electric field parameters (applied voltage and electrode geometry/orientation) and heat transfer surface characteristics (smooth and enhanced configurations). Should results of this initial investigation be encouraging, a more comprehensive future proposal will be submitted whereby systematic study of the problem both experimentally and analytically can be conducted.